Non-compact, random billiard systems; Quantum large deviations

Abstract
Lenci

This research project consists of three parts: Part I deals with
billiards on non-compact tables, as models for hyperbolic dynamical
systems with an infinite invariant measure. The plan is to extend
to these dynamical systems certain important results available for compact
billiards, including a suitable version of Pesin's Theory. This will require
the rewriting of some notions of ergodic theory for the case of a
non-probability measure. Part II concerns random billiards; more precisely,
billiards with a random table (changing after each collision), a quenched
random table (selected once and for all from a random ensemble), or a random
law of reflection (in a fixed table). In the first two cases there is a
physical invariant measure, and the PI will study its ergodic properties
(including Lyapunov exponents and the like) for a typical realization of the
random process. In the third case an equilibrium measure can be shown to
exist, and its asymptotic properties will be investigated, together with the
natural question of the stochastic stability at the zero-noise limit.
Similar perturbative questions are considered for the other systems as well.
Part III, in the realm of equilibrium statistical mechanics, considers the
question of quantum large deviations. In a collaborative project, the PI
sets out to initiate a theory of large deviations for a noncommutative
quasi-local algebra on a d-dimensional lattice. Of primary interest is the
convergence of the moment-generating function for an extensive observable,
and the smoothness and physical significance of its limit.

Billiards are a class of dynamical systems that has been most
extensively studied. This is so for a two-fold reason: On one hand,
mathematically, they are relatively treatable, with their geometric
features often giving hints on how to prove a certain sought
result. On the other hand, from the point of view of physics, they are
fairly realistic models that have been applied to a variety of fields,
from statistical mechanics to optics to scattering theory. Therefore the
drive is natural to expand this class to cover new areas where it could have
a remarkable impact: the family of open systems (every system with unbounded
dynamics belongs to this category) and of random systems (which tries to
justify when, and why, deterministic predictions still make sense in a noisy
world). As for Part III, the theory of large deviations in statistical
mechanics gives a theoretical understanding of the fact that large systems,
which are deeply random from the observer's standpoint, yield nonetheless
very accurate deterministic measurements. Although large deviations for
classical systems have been the subject of massive and very successful
research, a counterpart of quantum system (which should rightfully be even
more fundamental) is conspicuously missing at the moment.